CLEANER: Planning for a Full-Scale CLEANER: Options for Field Facilities and Cyberinfrastructure in America's Heartland

0414388 Hondzo This planning grant will address seven critical issues that need further definition and resolution for the full-scale development of a proposed NSF program called CLEANER (Collaborative Large-scale Engineering Analysis Network for Environmental Research). Special attention in this project will be paid to design and analysis of two alternative types of environmental field facilities (EFFs), which are viewed as the fundamental units of the CLEANER network. A type 1 EFF would be a regional environmental system that studies a range of interconnected environmental problems; a type 2 EFF would be focused on a single cross-cutting issue of national concern.